Sensors and Sensor Networks: Indoor Global Positioning System (GPS) Sensor Application to Actuator Metrology and Automated Manufacturing Workcell Calibration

This research uses newly available "indoor GPS" (iGPS) technology to
generate an accurate robotic reference model from a parametric
description (dimensions, compliance, etc.) of its "as-built" components
(actuators, links, etc.). The new metrology system uses infrared
transmitters and has sufficient accuracy to parametrically describe even
high precision systems. Completing the initial model requires the
construction of a 2 meter cube high-precision sensor network. Once the
parameters are known, they can be used to populate a developed model
allowing manipulator accuracy resolution previously attainable only at
laboriously taught locations. This development then allows for the
construction of open architecture manufacturing cells (1, 3, and 10
meter cubes). The iGPS and reference model will be used to "calibrate
as assembled" (i.e. on demand) and maintain the cell preventing accuracy
drift due to repair, upgrade, aging, temperature, etc.

The benefits of modular robots are clear. Such systems allow flexible
manufacturing, rapid repair, and upgrade, but these benefits have yet to
be realized. A significant barrier is the presence of error between the
tool (actual) frame and goal (ideal) frame. While the repeatability
(returning to a taught point) of a typical robot can be 0.005", its
accuracy (commanded to a new point) may not be better than 0.1" due to
configuration, load, model error, etc. Currently, teaching a robotic
device is a time-consuming process required after repair, upgrade, and
process change. But the accuracy is not sufficient to perform the
required high-precision operations without teaching. This fact trumps
other modular technology benefits. But the use of iGPS technology in
tandem with actuator metrology could lead to accuracy levels close to
repeatability and remove this technological barrier.